Research Site of the I/UCRC entitled "Repair of Buidlings and Bridges with Composites"

The research site at North Carolina State University is an extension of the existing multi-university Industry/University Cooperative Research Center for Repair of Buildings and Bridges with Composites. The North Carolina State research site focuses on addressing the needs of the construction industry in development of new and innovative structural components as well as strengthening/repair methods for existing structures using advanced composite materials.

The research at North Carolina State University will greatly expand the I/UCRC's research agenda. The multi-university activities will also expand the industry/university interactions and experience for researchers, students and company members.